Access to Science Materials for Print-Disabled Students

A Comprehensive Listing System is created to increase the amount of mathematics and science materials available in alternate formats including braille, large print, recorded, and electronic form in Canada and the United States for blind and print-disabled students in grades 3-14. Four major organizations serving print-disabled persons in North America are adding their bibliographic information to both the APH-CARL and UNION national databases major databases serving Library of Congress users and institutions serving the blind and print-disabled. The collaborative also invites more than 400 small publishers and colleges with Disabled Student Services (DSS) Offices on their campuses to contribute other titles not presently included on the database. Materials are available in several languages to accommodate users' needs. As a part of this project, Recording for the Blind (RFB) provides training to DSS offices on RFB standards for recording science and mathematics materials to ensure uniform quality. They also train users, educators, and librarians on the new systems to increase use and minimize problems associated with the transition to college by print-disabled students.